Undergraduate Research in Combinatorial Computing

This program will bring ten undergraduate students to Hunter College of CUNY in the summer of 1992, to be followed up with a once weekly academic year experience which will be a continuation of the work begun in the summer. The students will all be from underrepresented groups, and will be students at Hunter or one of the smaller private colleges in the area. In addition to the coverage of research topics, the participants will be provided with the opportunity to visit several industrial sites during the program, and will be presented with materials dealing with ethical issues in computer science and engineering. The research topics include problems about the existence of projective planes, about the existence of symmetric balanced incomplete block designs, and about the existence of perfect error correcting codes.